Sensing more than a quorum: The role of pheromones in the light-organ symbiont Vibrio fischeri

Plants and animals are consistently colonized by bacteria, and these
symbiotic microorganisms often contribute to beneficial processes and/or disease
in their hosts. Many symbiotic bacteria communicate using pheromone signals,
allowing them to coordinate group behaviors during infection. Such pheromone
signaling is typically called “quorum sensing”, because high cell density is
necessary for pheromones to build up. However, a “quorum” is typically not
sufficient to induce pheromone-mediated behaviors fully, and bacterial
pheromones are not simply census-taking signals. Importantly, the pheromones
may also function to communicate aspects of the host environment among the
bacteria. This project will use genetic, molecular, microscopic, and microbiological
approaches in exploiting the tractable model symbiosis between the
bacterium Vibrio fischeri and its natural host squid Euprymna scolopes to
examine the relationship between conditions in the host and the symbiont’s use
of pheromones. Pheromone signaling was discovered in V. fischeri and it
remains among the best-understood model systems for such study. The
symbiotic infection occurs in transparent tissue that is only colonized by V.
fischeri, and pheromone signaling during infection results in the emission of
bioluminescence by the bacteria, making the infection relatively simple and the
regulatory output easy to monitor. The scientific aims of this project are to
determine what aspects of the host environment lead to the induction of bacterial
bioluminescence and to determine what role pheromones play in communicating
conditions in the host. A third aim is to integrate research on bacteria-host
symbioses into undergraduate education, both through direct emersion in
research and through the generation of materials to facilitate in-class discussion
of scientific papers. The project will provide insight into the environment
symbiotic bacteria encounter in a host, and how their perception of the host
environment can be integrated with their use of pheromones. The project will
also help train young scientists.